Conference on Recent Advances in Nonlinear Partial Differential Equations

This award will fund travel and local expenses of 20 young mathematicians to attend and make poster presentations at the workshop on "Recent Advances in Nonlinear Partial Differential Equations," to be held in Toledo, Spain, June 7-10, 2006.

The workshop will focus on the modern theory of partial differential equations and its applications. Topics to be discussed by the 19 invited speakers include conservation laws, transonic flows, hydrodynamics and vortical structures, turbulence, dispersive waves, combustion, materials science, dynamics of the brain. The workshop will highlight the role of mathematics in these application areas. By bringing leading experts together with a large number of scientists working in these fields, many of them at the early stages of their careers, the workshop will serve as a forum for the dissemination of new scientific ideas and discoveries and will enhance scientific communcation. The poster presentations will give the junior participants an opportunity to exchange ideas with experienced researchers and thus stimulate the best talents in the field.